Novel Surface Active Polymers Using Biocatalysis: NSF I/UCRC COLUMBIA/PINY Tie Project

This is a tie project between the Industry/University Cooperative Research Center for Biocatalysis and Bioprocessing of Macromolecules at the Polytechnic University of New York, and the I/UCRC for Advanced Studies on Novel Surfactants at Columbia University, New York. The research program includes (1) synthesis of new functional polymers from renewable resources by selective biocatalytic transformations, and (2) investigation of fundamental relationships between the polymer structures, adsorption and conformational characteristics at surfaces and interfaces. Surface and interfacial properties of the polymers and copolymers synthesized at the Polytechnic University will be studied at the I/UCRC at Columbia University. A companion award (EEC-0124037) will support the research at the Columbia University.